Optimization of Parabolic Systems: Iterative Methods, Suboptimal Controls, and Preconditioning

Optimization of linear or nonlinear parabolic differential equations
in the context of optimal control, optimal design, or parameter estimation
plays an important role in science and engineering. Algorithms for the
solution of parabolic equations often involve marching in time, starting
from an initial condition. In optimization, however, the values of the
solution of the parabolic equation at later times feed into the
optimization at early times. This coupling in time makes the practical
solution of these very large-scale optimization problems challenging.
To cope with storage and computer time demands required by an exact
optimization of parabolic systems, so-called suboptimal control techniques,
such as reduced bases techniques and instantaneous control have recently
been proposed. The analysis of these techniques is still incomplete and
the limits of their applicability are not clearly described. This
research integrates selected suboptimal control techniques into an
optimization framework, where they are interpreted as truncated
iterative methods or are used as preconditioners in optimization methods.
This improves our theoretical understanding of these techniques and broadens
their applicability. The resulting methods are applied to specific optimal
control problems in or related to fluid mechanics.

Optimal control attempts to determine system parameters or inputs
to increase the performance of the system. For example, micro electromechanical
systems may be used to alter the flow characteristics on an aircraft wing
to reduce drag, or heaters may be adjusted to achieve a desired temperature
profile in a furnace while minimizing energy consumption. Many systems
can be modeled by mathematical equations. In this case mathematical
techniques can be used, at least in principle, to determine the optimal
system inputs. For systems that can be adequately modeled by moderately
complex mathematical equations this is done routinely and successfully.
Detailed mathematical descriptions of other systems, including flow
over an aircraft wing or the temperature distribution in a furnace, however,
are so complex that present mathematical techniques for the determination
of optimal control strategies require such large computer resources that
render them impractical. The goal of this research is to develop and analyze
computational mathematics tools for the determination of optimal control
strategies for a class of complex systems and the demonstration of
the practicability of these tools using selected applications in fluid
mechanics.